Hermitian Geometry of Non-Kahler Manifolds

ABSTRACT DMS - 0209306.
PI: Gueo Grantcharov

The project aims to study three problems of the Hermitian geometry of the
compact non-Kaehler complex manifolds: The geometry of Hermitian manifolds admitting
totally non-degenerate torus action, Hermitian structures on Riemannian manifolds
admitting many compatible complex structures and geometry of hypercomplex manifolds
and connections with totally antisymmetric torsion. The methods of investigation
include: Kodaira-Spencer-Kuranishi deformation theory, Lichnerowicz formulas for
Dirac operators and vanishing theorems, twistor correspondence, Kaehler orbifolds,
nilpotent Lie groups, moment maps for various spaces with geometric structures,
harmonic maps and others. If the project is successful, it is expected a new examples
of Einstein Hermitian manifolds to be obtained, the existence problem of HKT structure
on arbitrary hypercomplex manifold to be solved (negatively) and some characterization
or rigidity type results for manifolds with many complex structures to be found.

The role of the abstract spaces constructed from the complex numbers in the
theoretical foundations of quantum mechanics is significant. It increases in the
development of quantum mechanic to the theory of quantum fields. A more recent
investigations in the theoretical physics are directed toward a unification of the
quantum mechanics and general relativity. This, yet hypothetical theory, is called
string theory and for a long time the Kaehler geometry of the complex spaces has served as its mathematical
foundation. In mathematics little is known about the structure of
a general non-Kaehler complex spaces. However, in the fast-growing development
of the string theory an abstract models based on the non-Kaehler geometry appeared
in the last years. Such spaces have also additional geometrical properties
which makes the study of their mathematical structure more tractable. The
investigation on the project will contribute to the understanding of some of the
mathematical problems related to these physical models.